The Use of Porous Coalescers for Breakdown of Emulsions

Research Summary: This project is a theoretical and experimental study of the physics involved in the use of granular porous coalescers to break emulsions. The aims are: (a) to obtain a fundamental understanding of how a porous coalescer functions, (b) to develop quantitative theoretical models for predicting the performance of a coalescer in breaking and separating an emulsion and (c) to suggest a novel coalescer design to achieve separation with high efficiency. The experimental work involves flow visualization of the behavior of droplets, "blobs", and filaments in two-dimensional, photoetched, glass porous medium models with micron-sized flow channels. The theoretical study is based on population balance equations for describing the evolution of the size of droplets and blobs along the coalescer. Novelty/Innovation: The most novel aspect of the proposed research is the use of the photoetched, glass porous coalescer model, which allows a systematic study of the sole effect of surface charge, wettability and topology of the medium on separation efficiency. It is expected that totally novel high- performance coalescers can be designed based on the results of this research. For instance, a graded coalescer in which the size of pore chambers increases along the coalescer would allow uninterrupted growth of huge "blobs" while minimizing the pressure drop and thus pumping cost. A coalescer coated with anionic or cationic polymers would provide a surface charge which attracts an emulsion stabilized by a surfactant with the opposite charge, resulting in high separation efficiency. Technical Impact: At present, it takes about 3 man-years of pilot-plant testing just to make sure that an existing coalescer will perform up to the level specified in a warranty for a specific application. In addition to significantly reducing the need for pilot-plant testing, results of this research provide a procedure for designing a coalescer to handle a given emulsion at a much reduced cost. Furthermore, this research is also expected to have considerable impact in the general areas of multiphase flow in porous media (e.g. oil recovery) and of emulsion stability.